Coherent Structures in Turbulent Flows

The proposed research will further develop our understanding of the dynamics of coherent structures in turbulent flows. In particular, it is proposed to analyze the evolution of a pair of structures, aligned with the stream direction and parallel to a neighboring wall, of infinite extent in the stream direction and containing streamwise vorticity of opposite signs (a counter-rotating pair). The analysis will include the effects of viscosity throughout the whole flow field, and will thus be valid for weakly rotating structures as well as structures with large circulation. The proposed work will give an indication of the importance of neighboring walls and structures in the instability mechanism. Accurate modeling of these instabilities will lead to a better understanding of the laminar-turbulent transition and of mixing processes in fully turbulent flows. This is likely to have direct application in areas of engineering interest such as heat transfer and turbulent drag reduction.